Collaborative Research: Integrated Photonic Physical Unclonable Functions for Optoelectronic Hardware Security

In an increasingly digital world, the preservation of information security and privacy becomes more challenging yet remains essential to assure. First and foremost, private information is increasingly stored on computing systems and networks, and secondly such systems face a growing array of hardware and software level vulnerabilities. These vulnerabilities may be further exacerbated by the rising capabilities of machine learning algorithms, quantum computing, and the increasing sophistication of malicious actors. This research project will pioneer novel types of secure hardware technologies which are fundamentally rooted in optics and photonics rather than digital electronics. This research will advance our fundamental understanding of how to design and implement such technologies and will ultimately enhance our ability to construct and deploy safer and more secure computing systems in the future. Additional benefits to this research include the training of skilled future workers in science, technology, engineering, and math disciplines – particularly through developing expertise in the semiconductor industry and aiding workforce development in this technologically and strategically important field.

This research project will investigate the use of integrated silicon photonics for realizing new types of ‘physical unclonable function’ (PUF), an important hardware security primitive which can form the basis for security applications such as secure key generation, storage, and exchange. Specific goals of this research project include:
(1) Investigating the performance and information capacity limits of unclonable photonic circuits. Mapping and understanding trade-offs in the photonic PUF design space relating to the degrees-of-freedom, bandwidth, footprint, fabrication sensitivity, environmental sensitivity, design approach, and measurement technique.
(2) Developing fundamental techniques for extracting and/or generating digital key material and signatures from the physical properties of photonic circuits and PUFs and the photonic signals or spectra they create.
(3) Exploring dynamic optoelectronic PUFs based on tunable photonic integrated circuits. Quantifying enhancement in information capacity and studying stable vs. unstable regimes of key generation, storage, and recall. Pioneering new concepts relying on optoelectronic feedback to blur the boundary between the optical and electrical hardware to further enhance security and versatility for optical key generation.
The proposed research will advance our knowledge in the design, implementation, characteristics, and phenomena associated with an emerging class of low symmetry photonic structures and circuits based on moiré crystals and quasicrystals – and do so in a platform with great technological significance. Beyond the technical contributions, this research promises broader societal impacts by fostering the development of innovative hardware security technologies. These advancements will help counter emerging security threats, such as those posed by quantum computing, machine learning, and malicious actors within unsupervised supply chains, thus promoting societal well-being and security.

This project is jointly funded by ENG/ECCS/CCSS program and the Established Program to Stimulate Competitive Research (EPSCoR).